Concurrent Engineering and Design for Manufacture

This workshop familiarizes engineering undergraduate faculty with the importance and recent developments in the design of new products through Concurrent Engineering (CE) and Design for Manufacture (DFM). Several tools and methods, including customer driven engineering, product rating for assembly based on geometry or assembly motions, reverse engineering, and the use of the process capability for setting the quality and tolerance limits for new parts are presented and discussed with classroom and laboratory exercises. The workshop is followed- up by a quarterly newsletter and the exchange of software and video tapes of classroom implementation.